Microscopic-Level Investigations of Electrochemical Interfaces

In work supported by the Analytical and Surface Chemistry Program, Professor Michael J. Weaver at Purdue University is exploring the electrochemical interface at the molecular level. Using vibrational spectroscopic probes of the electrochemical interface, including reflection absorption infrared and surface enhanced Raman spectroscopy, Weaver and his coworkers probe UHV models of the electrode-solution interface. Electrostatic versus chemical interaction effects are probed by comparison between gold and platinum electrode surfaces. Scanning tunneling microscopy studies are used to probe mixed CO/NO overlayers on the platinum surface, in order to understand the interaction between substrate and overlayer structure. Computational studies are carried out in conjunction with these measurements to provide a more detailed understanding of the electronic structure of these mixed overlayers. The development of surface enhanced Raman spectroscopy as a chemically versatile probe of the electrochemical interface is an overarching goal of the research project.

In order to understand in detail the behavior of the electrode-solution interface in the electrochemical environment, atomic level structural and compositional information is needed. This research project combines vibrational spectroscopic probes, scanning probe microscopy, and calculational studies on well chosen model systems to provide this information. This increased understanding will impact the development of improved electrocatalysts, fuel cell electrodes, and materials synthesis methods.